The Catalyst Scholarship Program

This project is awarding scholarships to academically talented and financially needy students and is supporting the scholars through a variety of structures and programs. This project builds on a successful CSEMS project and is supporting students in computer science, mathematics, physics, or the geosciences. The student scholars are participating in a number of student support services already in existence on campus. In addition, several new initiatives are being implemented through this project. Students are required to submit an Academic Success Plan each semester to ensure they are on track to graduation and they are participating in faculty and peer mentoring activities throughout the academic year. Scholars enroll in a one-credit course designed to integrate geoscience topics with computer science, mathematics, and physics, during three semesters of their participation in the program. The success of the project is being rigorously assessed through quantitative and qualitative measures.